Realizability of Potential of Multiuser Detection

9417467 Rajala This is a "TIE" project on the topic of "Realizability of Potential of Multiuser Detection," to be conducted by the Industry/University Cooperative Research Center for Communications and Signal Processing at North Carolina State University and the Industry/University Cooperative Research Center for Wireless Information Networks at Rutgers University. The proposed activity is to conduct research to increase realizability and capacity of CDMA (Code-Division Multiple Access) systems. The proposed project will concentrate on the ability of multiuser detectors to combat multipath fading present in the actual mobile environment. This project is being cost shared with the Industry/University Cooperative Research Center for Wireless Information Networks at the Rutgers University. The Program Director recommends the North Carolina State University be awarded $50,000 for 24 months for this "TIE" project with Rutgers University.